Travel Grant to the 26th International Congress of Entomology and Post-Conference Synthesis Workshop; July 19-24, 2020; Helsinki, Finland

Insects are one of the most diverse groups of organisms on Earth, and yet they appear to be under threat from human-caused environmental disturbances. It is imperative that we understand how these environmental changes affect interactions between insect species, especially because insects provide essential services to humans (e.g. pollination of our major food crops, decomposition of dead matter). Scientists from around the world who are studying questions related to how environmental change affects insects will meet in Helsinki, Finland in July 2020 at the 26th International Congress of Entomology (also called the ICE meeting). The researchers are organizing a symposium at ICE with scientists who study how environmental change affects insect food webs and will provide travel awards to graduate students and post-docs, including underrepresented groups in science. Thus, this project will help to increase diversity of early- and mid-career scientists at the ICE meeting and will thus ensure that a diversity of views are represented in ongoing investigations into how global change affects natural ecosystems. Further, this project will facilitate the professional development and collaboration opportunities for scientists from underrepresented groups in science.

Global environmental change appears to be affecting insect communities worldwide. Insect communities form food webs and interactions with other species, including predators, greatly affect those species. How the strength of selection from these interactions will be altered by environmental change is unknown. Species interactions drive population abundances and community diversity; thus, understanding the impacts of global change on population dynamics, ecological communities, biodiversity, and ecosystem processes requires a multi-trophic perspective. Insights will be gained into how insect food webs are affected by global environmental change from the symposium. After the meeting, the researchers will convene a workshop to synthesize the current understanding and propose solutions for the impact of global change on insects.